The Biology of Aging: Integrating Research, Class Instruction, and Field Experiences

9354387 McNeill A non-science majors course in the biology of aging features a curriculum which: 1. develops scientific literacy by integrating current research findings by key investigators in biogerontology; 2. challenges students to think for themselves; and 3. includes a program of open-ended field and laboratory exercises that offers students the opportunity to work with older adults and learn about the heterogeneity of the aging process. A set of educational materials, including a quarterly newsletter, is being developed to help instructors at other institutions update their curricular materials as well as to provide a means to exchange information on innovative approaches to education in gerontology.